Collaborative Research: Decoding Biopolymer Nanocarrier-Plant Interactions by Machine Learning Models to Enable Precision Agrochemicals Delivery

The productivity and resiliency of global food production rely on precision delivery of agrochemicals to designated plant tissues. Nanocarriers are tiny particles that carry agrochemicals. After foliar application, they can enter plant leaves and transport their cargo to specific plant tissues. This targeted delivery can improve disease control and crop protection. However, developing effective nanocarriers is slow and expensive because researchers still rely on trial-and-error testing. This project will develop machine learning models to predict how nanocarrier properties affect their movement in plants. The models will combine information on nanocarrier properties with plant physiological and molecular responses. They will identify the processes that control nanocarrier transport and reveal nanocarrier design rules for targeting specific plant tissues. The project will create new knowledge and predictive tools for designing more efficient and sustainable agrochemical delivery systems. These advances will improve crop production while reducing chemical use and environmental impacts. The project will also train graduate students and prepare them for careers in sustainable agriculture. Partnerships with U.S. agrochemical companies will give students firsthand experience in industrial research. These partnerships will also help move the technology from the laboratory to practical use. The results will strengthen the competitiveness of U.S. agriculture and benefit farmers, consumers, and other stakeholders.

This project will establish an integrated experimental and computational framework to understand and engineer targeted delivery of biopolymer nanocarriers in plants, supporting the rational design of next-generation precision agrochemicals. The project will integrate biopolymer nanocarrier design, high-resolution spatial mapping in plant tissues, plant multi-omics analysis, and machine learning to systematically link nanocarrier physicochemical properties with their in-planta transport pathways and spatial distribution at tissue and organelle levels. The resulting framework will establish nanocarrier design rules to enable high throughput and predictive design of nanocarriers for precision agrochemicals delivery to intended plant tissues. The project will determine the influence of biopolymer nanocarrier size, charge, and biorecognition molecules to their tissue-level distribution (expanding leaves, stems, roots), and nanoscale subcellular localization within these tissues. This will reveal how tuning the nanocarrier properties can enhance their tissue-specific delivery and bioavailability. It will determine the influence of biopolymer nanocarrier size, charge, and biorecognition molecules on their systemic transport pathways. Using integrated transcriptomic and metabolomic profiling, the project team will identify potential transporters and receptors (e.g., nitrogen- and carbon-related) that mediate nanocarrier phloem loading, long-distance translocation, and unloading that determine their distribution in plants. This will provide fundamental understanding of the nanocarrier systemic transport pathways in plants. The project will develop a mechanistic machine learning model that connects nanocarrier physicochemical properties, spatial distribution, and multi-omics datasets to predict systemic transport behaviors of nanocarriers in plants. This model will help validate the identified transport pathways, quantify their relative contributions to nanocarrier transport, and uncover additional contributing transporter and receptor pathways. Project outcomes will be fundamental knowledge and artificial intelligence-enabled predictive design tools for developing more efficient, sustainable, and commercially translatable agrochemical delivery systems.